Symposium on Mechanics

This award is for the partial support of travel of USA participants to the Symposium on Geometric Mechanics and Symmetry at the University of Warwick. The Symposium will focus on the symplectic and differential geometry of symmetric Hamiltonian systems and applications of geometry and symmetry techniques to the classical, semi-classical and quantum mechanics.